NSF/AID (CRB): Declining Amphibian Populations in Lower Central America: Evaluation of the Phenomenon and its Possible Causes

Much attention has been focused recently on the apparent worldwide decline in amphibian populations. While the decline of some species may be attributed to habitat destruction, a perplexing number of declines have taken place at protected reserves on all major continents. Although the mostly anecdotal evidence for worldwide declines is compelling, studies providing quantitative data on changes are required in order to understand and mitigate the source or sources of biological trauma responsible for the declines. The present project undertakes such a study for Lower Central America (Panama and Costa Rica), where spectacular declines among amphibian populations were among the first to be recognized. The study will involve: resampling previously investigated sites following the original sampling protocols; establishing a series of attitudinal transects in areas of obvious declines and where declines are not evident for future repeated sampling; and sampling individual species believed to be particularly sensitive to environmental deterioration. Data obtained from the sampling program will demonstrate the extent of decline, whether the entire amphibian association or only a subset is affected and whether an apparent difference between upland localities (marked decline in many species) and lowland (no clear declines overall) sites is real. It is anticipated that the project, the first regional study of amphibian declines utilizing a repeatable, quantitative approach, will answer fundamental questions as well as serving as a model for similar comparative studies in other geographic regions.